CAREER: Ultra Low-Power Embedded Sensors for High-Density Remote Monitoring of Water Quality

In this five-year proposed CAREER project, newly developed ultra low-power chemical and
turbidity sensors will work alongside low-power commercially-available temperature, pressure
and flow sensors to provide high-density remote sampling of the watershed environment in
eastern Kentucky.
Scientific Merit:
The scientific goal of this project is to build and use a low-cost sensor platform for real-time
water quality monitoring. Original research will be conducted into ultra low-power chemical and
turbidity sensors. These micro- and nanofabricated components will be integrated into a
macroscale sensor network using off-the-shelf wireless networking hardware and open-source
software that has recently become available. Wireless communication nodes will each connect to
dozens of low-power submersible sensors at different depths; since depths and sensor types
depend on the application, a standard electrical and mechanical sensor interface will allow users
to easily customize the network. The end result will be a new set of low-cost research tools
available to help environmental and geological researchers ask new scientific questions, backed
by the ability to carry out watershed monitoring projects with greater data resolution than ever
before.
Broader Impact/Educational Activities:
Educational activities focus on using the sensor network to monitor water quality in eastern
Kentucky. Due to the rugged Appalachian terrain, previous studies of the region's water quality
have not been carried out at high resolution. Mining, agriculture, and natural events contribute to
both degradation of water quality and changes in the hydrological dynamics of ground and
surface water flow, yet the impracticality of accessing a remote streambed during a storm, and the
low spatial density of conventional sampling, have made it difficult to pinpoint the source of a
change in water quality without after-the-fact laboratory techniques. The broader impact of these
remote access real-time water quality maps will be an improved ability to monitor, understand,
and mitigate sources of pollution affecting human and ecological communities.
Two groups of Kentucky students, one in urban Louisville and another in rural eastern
Kentucky, will participate in the project's educational activities. Sensor fabrication and testing
will be conducted at the University of Louisville by first-year students in our Introduction to
Engineering curriculum. Because this project fits into the larger context of improving the natural
environment, it may attract students who have not previously considered majoring in electrical
and computer engineering due to unfamiliarity with the purpose and variety of career options in
the field. These underrepresented students come disproportionately from the female and minority
population.
This project will also establish a collaborative link between the engineering school at the
University of Louisville and Eastern Kentucky University, which does not have an engineering
department. Field testing, data collection, and analysis will be conducted by students at Eastern
Kentucky University via the Eastern Kentucky Environmental Research Institute, which was
created in 2005 with funds from the National Science Foundation's Experimental Program to
Stimulate Competitive Research (NSF-EPSCoR). Its purpose is to foster interdisciplinary
research into understanding the effect of environmental function on eastern and central
Kentucky's land, air and water, and to encourage both undergraduate and graduate student
participation in the design and execution of research projects, particularly field-based research
activities. Early in the project, professors, students and community members will specify sensors
to best complement the monitoring methods they are currently using. In return, they will obtain
new research instruments, and hands-on experience with cutting-edge wireless sensor network technology.